Metallurgy Training Conference Project

Eastern Maine Technical College will conduct three five-day training conferences on Metallurgy for 18 engineering technology faculty from 6 technical colleges throughout the state of Maine. One conference will be held each year for three years. Each Conference will include lectures, participation in laboratory testing procedures, and evaluation, as well as discussions among participants about the integration of these topics into their classes. The first conference will focus on iron and steel; the second conference will emphasize aluminum and stainless, and the third conference will be devoted to titanium and exotic non-ferous metals. Each conference will result in the development of a laboratory manual. After each conference a mini-conference will be held to assess the integration of the conference curricula into the institutional curricula of the faculty participants.